Conference: Support for the 4th EAI International Conference on Security and Privacy in Cyber-Physical Systems and Smart Vehicles

This project will support to help students attend the 4th EAI International Conference on Security and Privacy in Cyber-Physical Systems and Smart Vehicles (SmartSP2026), to be held in Detroit, Michigan, on November 5–6, 2026. The funding will help cover student travel, lodging, and registration costs. SmartSP 2026 focuses on cyber-physical systems, smart vehicles, intelligent transportation systems, and related security and privacy challenges. Student participants will be selected based on academic performance, research experience, and demonstrated interest in CPS, smart vehicles, and security. This support will provide students with opportunities to attend technical sessions, present their work, receive feedback, and interact with researchers in the field. The project will support workforce development in Cyber-Physical System and smart vehicle security.